Unidata 2018: Transforming Geoscience through Innovative Data Services

This proposal will enable efficient access to geoscience data, developing tools for effective use of geoscience data, providing community leadership on geoscience cyberinfrastructure issues, and building and supporting a diverse geoscience community. This proposal will extend the work Unidata has done, addressing emerging issues related to ever-growing data volumes, complexity of data-centric scientific workflows, and IT resource constraints at universities. The Unidata Program Center will leverage the advantages of the robust cloud-based computing environments that have emerged. It will evolve and augment existing Unidata technologies with the goal of : Reducing the amount of data that must be transferred over computer networks; Reducing the complexity of the hardware and software environments university members must maintain; and increase the flexibility of scientific investigators to conduct science and extract knowledge from the deluge of geoscience data.